HSI Implementation and Evaluation: Bridging the Gap: Designing a Technology Learning Community Integrating Computational Thinking to Improve STEM Engagement Across Disciplines

This Track 2 HSI project aims to create a Technology Learning Community that integrates Computational Thinking into both formal classroom-based and informal co-curricular learning environments to prepare students for emerging workforce skills needs. While computational fields and careers are the focus of the 21st century, there is a need to intentionally cultivate these skills in students and faculty to foster continued U.S. innovation. This project will create a generalizable and effective model that will enable students to gain the skills needed to persist in STEM/allied fields by combining Computational Thinking within both formal and informal learning. Involving both Computer Information Systems (CIS) and non-CIS majors (i.e., social science and business), this technology-focused learning community will improve the student's problem-solving skills and innovation. By infusing Computational Thinking into both CIS and non-CIS courses, providing students access to solve real-world problems via Hack-a-thons and Make-a-thons, as well as providing faculty training - this project will improve persistence, retention, skill-building and increased innovation.

This project expands the Technology Learning Community framework into an AI Technology Innovation Hub by integrating Computational Thinking, artificial intelligence, and project-based learning across formal classroom instruction and informal co-curricular experiences. The goal of the project is to increase student self-efficacy, STEM engagement, STEM interest, and persistence through three objectives: (1) Integrate Computational Thinking in CIS and non-CIS courses using real world problems to introduce concepts such as Artificial Intelligence Ethics and Data Science. (2) Bridge formal to informal learning through a hybrid Success and Innovation Lab, Hack-A-thons, and collaborative Make-a-thon Projects for Social Good, supported by faculty, peer mentors, and industry experts. (3) Expand Computational Thinking Across Disciplines by training faculty across both CIS and non-CIS disciplines (such as Business, Social Sciences). The project will study how to combine Computational Thinking and Project-based learning to link formal classroom activities to informal learning engaging a total of 600 students. This project will facilitate relationships and engagement by incorporating local business and incubator partnerships. This intervention conducts research on whether the project’s approach increases participation in STEM by engaging across academic disciplines and learning environments can meet three major needs: increasing retention and persistence, fostering skill-building and innovation, and filling a gap for interdisciplinary learning communities. This project is funded by the HSI Program, which aims to enhance undergraduate STEM education and increase capacity to engage in the development and implementation of innovations to improve STEM teaching and learning at HSIs.